The T2M3 Project: Teachers Using Testing to Measure Mathematics Meaningfully

The T2Me project will study teachers' capabilities for creating and using meaniningful assessment instruments in mathematics. This project will bring together mathematicsteachers, assessment experts, mathematicians, and educators in a collaborative effort to improve assessment in mathematics. Eight teams of elementary and middle school teachers, with prior experience in integrating technology into the math curriculum, will receive extensive training in developing assessment procedures that emphasize higher- order thinking processes. The teams will learn how to develop dynamic assessment materials; create assessment materials that incorporate innovative instructional technology; and field-test and evaluate the developed materials in their classrooms. Evidence of teachers' capabilities and accomplishments will be collected through interviews, observations, and analysis of field-notes. Case studies will be developed to characterize teachers' efforts.